CAREER: Securing the Future of Electric Field Measurements in Space Physics

The space physics community has spent the last decade optimizing particle and magnetic field instruments to operate on small spacecraft or CubeSat. This enables more high-quality measurements of space plasma with cost-effective hardware. The same optimization of electric field instruments has not been achieved, leaving a gap in our ability to observe the space environment with cost-effective spacecraft. Accurate electric field measurements are crucial for understanding the space plasma processes, particularly at small scales. This CAREER project seeks to narrow this gap and take a vital step in optimizing electric field instrumentation to operate on CubeSats. Doing so allows us to step toward a future where the most fundamental physics can be thoroughly observed and studied. This is necessary to make accurate space weather forecast, which is important for protecting critical infrastructure, communication systems, navigation, and power grids. The educational objectives are to develop open-source software to allow students to access and analyze data, and engage students in hardware flight-readiness testing. Additionally, this study will expose opportunities in space science to students and provide possible gateways to career opportunities in space physics. During this study, project high school students in West Virginia will participate in various activities related to the design of the CubeSat. The award will also support the professional development of an early-career faculty member leading this student-centered research and training effort.

In this study, the PI will design a CubeSat mission specifically utilizing electric field double probe instrumentation. It will observe plasma dynamics in the Auroral Acceleration Region (AAR), a plasma region that bridges the Earth's ionosphere and magnetosphere. This mission will address the scientific questions: 1) What is the perpendicular spatial and temporal structure of the electric and magnetic field in the AAR? 2) What is the perpendicular spatial and temporal behavior of the electrons in the AAR? 3) How do the first two questions vary in altitude? We will design and utilize the electric field instrument necessary to address these questions for this mission. This design will be the first step in optimizing electric field instrumentation for small-sat technology. This will enable the pursuit of numerous future opportunities to observe and study space physics in cost-effective ways and in missions that utilize electric field instruments.